FW-HTF-R:Collaborative Research: Partnering Workers with Interactive Robot Assistants to Usher Transformation in Future Construction Work

Construction is a $10 trillion industry that employs about 180 million workers worldwide. However, the future of construction work is at crossroads. First, productivity in construction work has been stagnant relative to other industries (e.g., manufacturing), and the industry has historically been slow to adopt innovations that affect efficiency. Second, it has been difficult to offset the aging and retiring workforce with younger and more diverse workers, causing the workforce supply to fall short of rising demand. This is mainly because construction work tends to be physically strenuous leading to occupational hazards that often force workers to retire early. Robotization has been suggested as a potential solution to these problems. However, the unstructured nature of construction work presents several technical, social and economic impediments that hinder the direct adoption and integration of such innovations by the construction industry. For construction workers, robotic technology can only be transformative if it allows them to channel their passion for the work while avoiding the chronic pain and health outcomes associated with its physical demands.

This project investigates if construction work can be conceived as a human-robot partnership, where human workers play the critical role of planning the work, and training and supervising robotic assistants to adapt to presented workspace conditions and perform useful work. The project team is integrating advances in interactive task learning, mixed reality, and reinforcement learning to enable construction workers to naturally collaborate with robot assistants through direct physical interaction and virtual supervision and training. For such a symbiotic human-robot partnership to benefit construction workers and result in widespread deployment, workers need to be equipped with new skills. The project team is exploring new educational and professional development programs to support worker aspirations for upskilling and lifelong learning, and to open avenues for people of diverse abilities to be productive members of the construction workforce. Tight-knit partnerships with industry collaborators will inform the project activities and provide access to construction work sites and training facilities for testing and evaluation.